REU Site: Algorithms in Data Science with Applications

Modern interdisciplinary problems increasingly require complex solutions that incorporate sophisticated algorithmic techniques. As data-driven approaches continue to transform science, engineering, and society, the demand for efficient and innovative algorithms is greater than ever. The project’s novelties are the design and application of new educational and research experiences that enable undergraduate students to engage directly with important real-world problems while developing advanced computational methods to solve them. The project's broader significance and importance are in preparing the next generation of scientists and engineers who can both understand practical challenges in real-world problems and contribute to algorithmic innovation, thereby advancing discoveries across fields such as healthcare, computational biology, computational geometry, sustainability, and cybersecurity.

The project develops a structured program that combines exposure to applied data science problems with training in algorithm design, implementation, and simulation. Students work on hands-on research problems across multiple domains, including computational biology and cybersecurity. In computational biology, participants explore problems such as pattern matching in strings and chaining problems in pangenomic data. In cybersecurity, students explore problems such as biometric identification via deeply hierarchical Bayesian N-Gram Modeling, spatiotemporal deep learning methods for fire video segmentation, and the automation in Cybersecurity Reasoning for the discovery of vulnerabilities. The research requires integration of algorithmic techniques, statistical modeling, and machine learning to solve them. Expected advances include improved student understanding of advanced algorithmic methods, enhanced problem-solving skills, and the development of computational techniques applicable to real-world problems.